Undergradute Faculty Workshop in Computer Graphics

The capabilities of inexpensive computer systems have greatly increased theimportance of computer graphics and its applications, such as visualization and multimedia. This project will support two undergraduate faculty workshops on Computer Graphics focusing on advanced techniques for image synthesis with the objectives of helping faculty to upgrade their current computer graphics courses and producing curriculum materials which they can use in their own courses.***//